Sensors: Scalable Coordination for Hybrid Sensor/actuator Networks

A hybrid sensor/actuator network, which consists of a large number of static sensors and relatively
small number of mobile robotic sensors, opens new frontiers in a variety of civilian and military
applications and in some scientific disciplines. The combination of a wireless sensor network and
a multi-robot system reduces the cost but significantly enhances each other's capability. The static
wireless sensor network provides collaborative sensing, communication, coordination and navigation
to a multi-robot system and human operators. The mobile robots augment sensor networks'
capability by their mobility and advanced sensing, communication and computation capability.
The objective of this project is to address two challenging research issues in a hybrid sensor/
actuator network: autonomous sensor/actuator coordination algorithms and self-configuring
communication protocols. The specific goals of this research project include: (i) dynamic modeling
and organization of hybrid sensor/actuator networks; (ii) sensor/actuator coordination algorithms to
reallocate sensing, networking and computing resources to provide required coverage and specified
sensing accuracy; (iii) self-configuring protocols to provide information for environmental sensing,
communication, robot coordination and navigation; (iv) robot navigation algorithms in sensor
networks; and (v) a perceptive reference frame for the analysis and design of the coordination
algorithms and communication protocols.
The PI will develop an effective education program in sensor networks and multi-robot systems
at Michigan Technological University, with the objective to foster creative thinking and analytical
skills. The PI will promote competition-motivated learning by the development of a senior level
one-year design course and an Enterprise program using the concept of networked systems of mobile
robots and sensors. The outreach activities to K-12 education include: (i) participating in two of the
summer youth programs, woman in engineering and explorations in engineering, which encourage
women and underrepresented groups to pursue engineering careers; (ii) providing leadership in
professional development for teachers, especially for teachers in local school districts.
Major Intellectual Merits and Broader Impact
The intellectual merit is the understanding of the control and self-organization of a complex hybrid
sensor/actuator networks. The accomplishment of this project will have substantial intellectual merits
in three areas: (i) multi-robot systems: understanding how to model a dynamic and distributed large
scale system, as well as how to coordinate and navigate multiple mobile robots in sensor networks;
(ii) sensor networks: understanding how to enhance sensing and communication using mobility,
as well as how to cluster a sensor network for energy efficient routing and tracking; (iii) other
frontiers: application of the algorithms in safety control of Intelligent Transportation Systems, and
research in ecosystems and environmental monitoring.
The broader impact of this project is a natural outcome of the innovative research and education
programs. The results of this research activity provide systemic design approaches for
rapid deployment of hybrid sensor/actuator networks, which will impact research in environmental
monitoring and ecosystems, and find myriad applications such as battlefield surveillance. The
educational plan will directly benefit the anticipated education activities in robotics and networks.
The educational plan will strengthen our educational objectives by enhancing the content of graduate
and undergraduate classes, and by providing meaningful experiences to undergraduate researchers.
Every year, the outreach programs help hundreds of pre-college students, many of whom are women
or minorities, to improve scientific understanding and interest in engineering and technology.
A-1